"Physico-Chemical Properties of Associated Solutions"

This U.S.-Yugoslav cooperative research project in physical chemistry between Spela Paljk of the Josef Stefan Institute in Ljubljana and Oscar Bonner from the University of South Carolina is continuation of a U.S.-Yugoslav joint research program on the study of the physico- chemical properties of associated aqueous and non-aqueous solutions. The aim of this study is to characterize the structure of associated liquid mixtures by investigating the solute-solute (dissolved substances) and the solute-solvent interactions. The proposed study will carefully investigate the structure of cholesterol, a non-aqueous system. The investigators have complementary research interests. Their previous collaboration proved productive and resulted in numerous publications in this field. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugolsav dinars and made to the principal Yugoslav institute. Grants include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.